Dynamic Damping of Payload Motion for Cranes

The research will develop a strategy for damping of payload motion for various kinds of cranes used in construction, i.e. mobile cranes, boom or tower cranes etc. which can be easily implemented on existing equipment. There are several factors which influence the dynamic behavior of the payload, such as velocity and acceleration, vibrations, slipping of wheels or support, and wind. Most research in this area concentrates on controlling the velocity and accelerations to eliminate inertial forces. However, it is almost impossible to realistically model the effects of wind, effects caused by slippage of tires, or settlement of support, etc. The research uses a new approach to control the swaying the payload, regardless of the cause. The control strategy will be based on applying periodic balancing forces and moments to the cable to damp out oscillations as when detected. A feedback control systems applied t the cable has the potential of providing an inexpensive and easily implemented solution. This can be achieved by the decoupling the payload and cable system from the structural members of the crane during the development of the control strategy. Effective control of the payload will improve safety, productivity and timeliness for a number of material handling operations.